IDA: Women in the Sciences and Engineering, 1998: Changes,Choices, Successes

"Women in the Sciences & Engineering, 1998: Changes, Choices, Successes" is a 1 day conference which will provide a forum for scientists and engineers (both early career and experienced) and their teachers, professors and employers to meet, review and analyze together what is known about best practices in industrial, government and academic workplaces that increase the participation, success and satisfaction of women in science and engineering career pathways. The conference, organized by the NY Academy of Science (NYAS), in collaboration with Avon Products, The Radcliffe Public Policy Institute, and Catalyst, Inc. is a follow up to the 1972 NYAS conference, "Successful Women in the Sciences: Analysis of Determinants," and will be held in New York City in the spring of 1998. Conference Proceedings will be published, and made available thought the Academy.